Antibody-Assisted Hydrogenation

This Research Planning Grant will enable Dr. Stephanie Sen to initiate a research program in the design of antibodies which have the ability to assist in the hydrogenation of activated and inactivated olefins. The approach is to generate monoclonal antibodies that work in conjunction with transition metal catalysts to asssist in the hydrogenation of olefins. Preliminary research will focus upon determining preparative methods. Subsequent work includes the study of enantioselective reactions that these antibodies may induce in olefin hydrogenation. %%% Research Planning Grants are awarded to women who have not yet recieved federal funding for their research. Dr. Sen will be studying the development of catalysts from biological sources. These catalysts would assist in commercially important reactions and could represent a new class of non-polluting catalysts.